Operating System and Middleware Support for Multi-Media Systems Area Network

PROPOSAL NUMBER: CCR-9972243

TITLE: Operating System and Middleware Support for a
Multi-media Systems Area Network

PI: Kamlesh Rath

Multi-media appliances are evolving around new serial systems area
network (SSAN) standards, e.g. FireWire (IEEE1394) and SerialExpress
(IEEE P3100). These provide the band-width needed for networking
multi-media appliances at a very low cost compared to current system-bus
and LAN technologies. Operating system enhancements for multi-media
appliances on high-bandwidth SSANs can enable sharing of processing,
storage and peripheral resources between appliances.

The operating system and middleware software in appliances on a SSAN
are required to perform the following functions: (i) manage the network
and peripheral interface hardware, (ii) provide dynamic transaction
based device registration and resource management mechanisms for
hot-pluggable devices, (iii) provide automatic buffer management based
on application and multi-media data/stream requirements, (iv) provide
one-copy user to network interface data transfer mechanism for real-time
data, and (v) provide mechanisms for integrated presentation of related
media streams on a client.

This research focuses on analysis, design and development of dynamic
resource management software for multi-media appliances and transport
layer software for SSANs. The operating system enhancements and
middleware are being developed on a light-weight real-time kernel using
a minimal POSIX compliant sub-set for portability.